An Undergraduate Laboratory for Digital Systems and VLSI

This project will provide undergraduate students in computer science, computer engineering, microelectronic engineering, and electrical engineering the opportunity to design, implement, and test significant digital systems. It will provide the necessary equipment for a new computer architecture laboratory. This laboratory will be used primarily by students in two new undergraduate concentrations: the 3- course digital systems design concentration in computer science and the 2-course very large scale integration (VLSI) design sequence in computer engineering. It will be used by microelectronic engineering students to provide functional testing of integrated circuits (IC's) fabricated at RIT. Three new computer aided design (CAD) workstations will provide schematic capture and simulation at the functional, logic, switch, and circuit level. They will also include capabilities for board placement, routing, and layout, as well as integrated circuit layout. A fourth workstation will be used for testing boards and IC's. It includes 32 bits each of pattern generation and state analysis. Additional equipment includes oscilloscopes and 2 multibus computer systems. The multibus systems will provide the computer interface for boards designed by students. The oscilloscopes will be used to analyze and debug boards and other circuits. The project will produce computer science students with greatly increased competence in hardware and embedded systems. It will result in computer engineering students who have considerable experience in the design of complete systems involving VLSI components. It will also provide new undergraduate research opportunities for seniors in both disciplines.